U.S.-France Cooperative Research: Out-of-Equilibrium Dynamics of Quantum Systems

0128922
Chamon

This three-year award for U.S.-France collaboration in condensed matter physics theory involves students and faculty researchers at Boston University, Ecole Normale Superieure, Ecole Superieure de Physique et Chimie, and Commission de l'Energie Atomique in Paris, France. Claudio Chamon and Leticia Cugliandolo from Boston and Paris respectively will lead the collaborative program. The theoretical work involves studies of quantum non-equilibrium dynamics in both driven and non-driven systems. The research focuses on aging dynamics, infinite dimensional quantum spin glass systems, aging and memory effects in electronic glasses, and noise, quantum fluctuations, charge, spin in quantum wires, quantum dots, and carbon nanotubes . The collaboration takes advantage of complementary French expertise in quantum systems, spin glass models, and dynamics in electronic glasses.

This award represents the US side of joint proposals to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses of the US investigators and graduate students. The CNRS will support visits to US of the French participants. The collaboration will advance understanding of quantum systems and computational and theoretical methods. The theoretical results will be applied to experimental data and lead to new interdisciplinary research directions in statistical mechanics and quantum condensed matter physics.